The Effect of Polymer Architecture and Segment-Surface Interactions on the Dynamic Properties of Polymers Layers Absorbed from Aqueous Solution

The research suggests using Evanescent Wave Induced Fluorescence to measure the adsorption from aqueous solution of polymer molecules onto solid surfaces. The effect of polymer results will be applied to the adsorption of polymer molecules onto colloid particles for the purpose of regulating their interaction. The study will focus particularly on hydrophobically modified polymers adsorbing onto hydrophobic surfaces, and the results should be applicable to a wide variety of polymer colloid systems.